More Than a Building: A Living Laboratory to Engage Students in the Computing and Engineering Sciences

Engineering-Engineering Technology (58)

This project is using a Computer and Engineering Building as a hands-on laboratory that creatively engages students in real-world problem solving. The four project elements include: 1) creating a read-only interface to the building operating data and an interactive website that makes the data available to faculty, students, and the broader science education community; 2) revising, teaching, and assessing three classes using the building as a laboratory and incorporating active, problem-based and collaborative learning; 3) developing activities that use the building data to teach visiting underrepresented secondary students about the use of energy and creating an interest in computer science, engineering and physics among these youth; and, 4) disseminating materials, curriculum and knowledge broadly to the secondary and university-level engineering education community.